ROW: Investigation of Self-Affine Surface Fractals through Adsorption Isotherms

The investigation of fractal formation is currently dominated by theory and computer simulation. An experimental study is proposed to document those conditions under which self-affine fractal structures result, and to prepare surfaces of varying fractal dimension. Three deposition parameters will be varied: deposition rate, substrate temperature and deposition material. Three experimental techniques for measuring fractal dimension will be carried out: Nitrogen (77 K) isotherms, adsorption by adsorbates of various sizes, and small angle x-ray scattering. Future studies of the superfluid onset of He adsorbates and interfacial friction are planned.